Augmented methods for Navier Stokes equations involving free boundary and moving interface and applications

This proposal concerns the development and analysis of new numerical
methods for Navier-Stokes equations involving discontinuities,
free boundaries, moving interfaces, and problems on irregular domains.
The new methods will be applied to several important applications in
multi-phase flows, fluid structure interactions with interfaces, fluids,
or solids. In the proposal, augmented immersed interface methods are proposed
to tackle those difficulty problems. The new methods are based on sharp
interface models (no smearing), second order and implicit discretization.
The new methods are proposed to be implemented to simulate several
important applications such as the moving contact line problem using one
and two phase flow models; non-extensible interfaces in incompressible flows,
open-ended interfaces, and moving interfaces with masses.

The projects described in the proposal have wide applications in mathematical
biology, material science, aerodynamic and mechanical engineering. The
non-extensible interfaces have been used to model the motion of red blood
cells in the life science. Efficient numerical simulations will have positive
impact on early detection of illness related to the red-blood cells. The moving
contact line problem has direct applications in the material science. Efficient
numerical simulations using computers may avoid expensive experiments. This
is true for other projects in the proposal as well. This proposal will also
have positive effect on education by attracting under and graduate
students to conduct research in this area. Some components of the
projects will be designed as undergraduate projects. Furthermore, the research
results can lead to a computer software package that would be useful to the
computational science involving free boundary and moving interface, and
problems defined on complicated domain.